Observing the Snowy Sheathbill and Its Behavior

The PI, Susan McCarthy, a published author, and her co-PI Terri Nelson, an artist?both of whom are critically acclaimed in their fields--propose to observe the behavior and habitat of a little-known Antarctic bird, the Snowy Sheathbill, to produce a children’s book on this species, its role in the Antarctic ecosystem and the larger issue of the value that is assigned by human beings to “charismatic” as opposed to “non-charismatic” animals.